Dissertation Research: The Cultural and Cognitive Bases for Coordination in the Practice of Fishing in Sweden

This project involves the dissertation research of a graduate student in cognitive anthropology from the University of California-San Diego. The project will study how fishermen from a rural Swedish village coordinate their work activities given a set of constraints from their social life, cultural tradition, human cognition and the physical environment. Working from videotapes of activity in fishing boat settings, transcripts will be produced that make explicit the representations used by actors to satisfy task constraints with the resources at hand. The transcription process involves a translation of behavioral data into a language that reveals the task-relevant representations that are communicated, acted upon, or otherwise used to enable coordination. The data will test propositions about the relationships between cognitive action, cultural resources, and social processes. This research is important because understanding how task groups solve problems and coordinate action can help society design equipment and processes to minimize error and improve efficiency. The relevance to important work activities, such as air traffic controllers, and navigation teams, is clear.